Partnerships in Field Research and Curriculum Enhancement

The Partnerships in Field Research and Curriculum Enhancement project is designed to stimulate renewed interest in and improve the teaching of science at the precollege level by providing opportunities for K-12 teachers to join University of California (UC) scientists on field research projects in the natural and social sciences. Workshops conducted before the field activities will provide an overview of each of the disciplines involved, major developments and current directions. Teacher participants will then join U.C. field teams for two to four week periods in the summer on research projects in the United States and abroad. They will live with the scientific team at the field site, be instructed in basic field methods, and take an active part in data collection and analysis. After returning from the field, teachers will develop classroom curriculum materials based on their field activities. A series of academic-year workshops led by university scientists and curriculum specialists will provide assistance in curriculum development. Curriculum units developed by the teachers will be disseminated to interested educators through a teacher Research Resource Library. The program is planned to operate over a 3 year period. Approximately 100 teachers will participate. The program's impact will be extended through teacher presentations of field research experiences and dissemination of the curriculum materials. This project allows the Teacher Enhancement Program the opportunity of placing teachers (K-12) in research situations. Subsequently the participants will plan teaching strategies to incorporate their research experience into classroom activities. Since many teachers have not been involved in research activities of any type, this type of program should result in a substantial change in doing science in the classroom.